International Symposium on Fluidized Beds to be Held at Stanford University, July 1-5, 1991

The IUTAM symposium on The Mechanics of Fluidized Beds will be organized by Drs. G. M. Homsy and G. K. Batchelor at Stanford University in July 1-5, 1991. The topics of the meeting will be the mechanics of suspensions, fluidized beds, granular media, and fluid-particle systems in general. The purpose is to provide an opportunity for engineers, applied mathematician, and applied scientists to meet and discuss the advances in understanding two-phase fluid-particle systems, as well as to identify unsolved problems and future trends. About 50 participants are expected to attend. There will be six invited lectures. The proposed symposium will provide a forum to evaluate the present research on fluidizing fluid-particle systems and discuss future trends. The meeting will bring together several of the best researches in the field from USA, Canada and Europe.